Regulation and Function of Neuronal MAPs

9311806 Shafit-Zagardo A neuron has numerous processes, axons and dendrites, which allows each neuron to communicate with other neurons. The cytoskeleton of a neuron is essential for maintaining these processes. Microtubule-associated proteins are a highly specialized family of cytoskeletal proteins found in the processes of neurons. The major microtubule-associated protein found in dendrites is MAP-2. Glutamate is a neurotransmitter molecule that functions in signaling between neurons. Receptors for glutamate are present in the dendrites of many neurons and when activated, they trigger a series of changes within the neuron such as increases in calcium and modulation of certain intracellular messengers. These changes can result in changes in the architecture of the dendrites. This project will test the hypothesis that activation of the glutamate receptor results in changes in MAP-2, which ultimately results in changes in the form of the neuron. The results from this study will supply insights into the mechanisms responsible for development of specific patterns of connections between cells in the nervous system. *** te with ot ! ! F v v 8 Times New Roman Symbol & Arial " Univers (WN) t t t " h J E p 8 Steve McLoon, IBN William Proctor, IBN